Chaotic Routing: Study and Implementation

Snyder The chaotic router for multiprocessor systems avoids congestion in message routing by derouting packets chosen at random at congested nodes of a network. The routers can thus adapt to varying message traffic. In this project, the router is being implemented and its performance is being measured within a testbed that approximates a real multiprocessor.